CAREER: Integrated Resource Conservation in Sensor Networks

PROPOSAL: 0347674
INSTITUTION: George Washington Univ
NSF PROGRAM: NETWORKING RESEARCH
PRINCIPAL INVESTIGATOR: Cheng, Xiuzhen
TITLE: CAREER: Integrated Resource Conservation in Sensor Networks

Abstract

Distributed networks of thousands of collaborative sensors
promise unattended systems for many monitoring, surveillance
and control applications. Sensor networks are expected to operate for
long time. This makes network lifetime the central problem for a
sensor network designer. This project pursues a system-level
integrated approach to extend network lifetime. More specifically,
new sensor location discovery methods are being developed that will
conserve resources such as computational power and radio bandwidth within
a sensor; new MAC protocols is being designed to optimize for
low power, low data rate sensor networks; novel approaches are
investigated for data aggregation services such as event detection and
target counting. Because sensor self-positioning, MAC control,
and data aggregation services in a sensor network are strongly dependent
on each other, their interaction and design are jointly
explored using an integrated approach for extending network lifetime.